Center for Survey Methods

Both the social sciences and the Federal Statistical System are vitally dependent on survey research tools. The knowledge required to use and refine these tools is unusually broad, drawing on a blend of many disciplines. As a result, the current organization of U.S. universities does not serve well the needs of innovative survey research. NSF funding for the Center for Survey Methods in the Washington, D.C. metropolitan area offers a chance to overcome the weaknesses of current programs. The University of Maryland, University of Michigan, and Westat, Inc., jointly propose to create and staff a Center for Survey Methods located at the University of Maryland's College Park Campus. Stanley Presser will be the Director; Robert M. Groves, the Associate Director. Existing Maryland staff will be supplemented by a permanent Michigan team located at College Park, a Westat team , and video instruction by Michigan faculty from Ann Arbor. The curriculum will pool existing Maryland courses, existing courses of the Michigan Summer Institute in Survey Research Techniques, newly created specialty courses, and a series of short courses targeted to the needs of the Federal Statistical System staff. An evolutionary strategy is proposed for the Center, starting with easily developed and time-proven courses and organizational ties, to a fully integrated course structure blending theory and practice and increased integration across organizations. The research program of the Center will be built around the selection of faculty devoted to ongoing research, research uses of a survey practicum, small seed grants, Master's research experience requirement, the research activities of visiting scholars, and a research design seminar. One measure of the Center's success will be collaborative research involving Center faculty and other survey statisticians and methodologists who are affiliated faculty and/or located on other campuses. This strategy will be critical in advancing the field of survey methodology.